A New Towbody for the Hawaii MRI Sonar System

9712310 Edwards This grant provides funds to cover the costs of constructing a new tow vehicle for the HMR-1 side-scan sonar system. New electronics, transducers and flotation will be purchased by the University of Hawaii. ***